Data Parallel SPMD Programming Models from Fortran to Java

This project brings together several important research areas, including
parallel compilers, Single-Program Multiple-Data (SPMD) libraries, and
object-oriented programming models. The project combines these ideas to
achieve high performance on parallel machines in a robust fashion over a
range of languages.

Building on earlier research in the Parallel Compiler Runtime Consortium
(PCRC) project, this project will investigate a language model that
combines data-parallel features from High Performance Fortran (HPF) with an
explicitly parallel SPMD programming style. This "HPspmd" model allows
direct calls to many established libraries for parallel programming with
distributed data. By relaxing HPF's single-threaded semantics and having
the programmer explicitly manage non-local references, the task of the
compiler is hugely simplified. However, good library bindings (e.g. class
libraries) supply the required expressiveness for programming. This
project will develop and optimize a Java version of the language model
(HPJava); design and implement bindings to parallel libraries such as
CHAOS, DAGH, Global Arrays, MPI,and ScaLAPACK; and implement large
applications within the resulting framework. The implementations are
expected to drive further refinement of the language model, especially in
support of irregular problems.